Cyberspace Forensics: Research, Course Development, and Laboratory Development (Capacity Building Track)

This project creates a computer forensics course and supporting laboratory, which enables undergraduate and graduate students at Iowa State University to obtain knowledge and skills in this important area. Further, the laboratory supports graduate and faculty research and provide a test-bed facility in which new tools and forensic procedures can be tested. The information assurance faculty at Iowa State currently support about 12 regularly offered graduate courses in network and systems security, however we do not offer studies in forensics. The need for such a course and laboratory coupled with recent hires of faculty in this area, has motivated this proposal. All course materials, lab experiments, and lessons learned will be shared with faculty from any interested University.